CISE Educational Infrastructure: Improving Software Design and Development Education Through Technological Innovation

This award is designed to improve software engineering education by providing technological support for the integration of language and design, object modeling methodology and software libraries of generic components. Rensselaer will be establishing a Design Conference Room containing networked workstations, a high-end projection system, a laser printer, and scanner. Four courses in the undergraduate curriculum will be the focus of this project: the second computer science course, a programming languages course, a software design course, and a software development course. Rensselaer proposes to develop and integrate into its curriculum, novel tools and techniques in software design and implementation. There are three major themes to this effort: better design through better use of language during conceptual stages of design, better design through object modeling and dynamics, and better software products through the use of libraries of reliable, reusable software. The results of the curriculum and materials development will be disseminated through publications, and presentations at professional meetings.